Indo-US Workshop on Photosynthesis, Molecular Biology and Bioenergetics, New Delhi, India, January 4-8, 1988, Group Travel Award in Indian and U.S. Currencies

Description: This project supports U.S. participation in an Indo-U.S. Workshop on Photosynthesis, Molecular Biology and Bioenergetics to be held in New Delhi, January 4-8, 1988. The meeting will address the topics of 1. Genes for photosynthesis, including chloroplast genome and genetic approaches and functional aspects of the photosynthesis apparatus. 2. Molecular structure-function relationship including membrane protein complexes and membrane organization. 3. Energy transduction including electron transport and proton gradient and ATP formation. 4. Stress effects, including structural aspects of photosynthesis apparatus and the photosynthetic activities. Scope: The workshop will bring U.S. and Indian scientists, as well as some invited eminent European scientists from various institutions together to discuss the progress of research in this important field. This is likely to stimulate new scientific concepts and new experimental research, possibly to be done cooperatively. Both India and the U.S. have large active communities in this field and are both likely to benefit from this exchange.